Resources for Performance-based Achievement in Mathematics

This is a two-year project to create a series of supplemental curriculum packages aimed at aligning recent reform curricula with state standards and high-stakes exit level state tests. Twenty supplements are planned including activities, homework, 'tips' sheets and teacher materials. The materials will be suitable for use with a wide range of textbooks and will be disseminated on the World Wide Web. A review panel of university faculty with assessment background will guide the work. Authors will include teachers with experience with students at risk of failure in exit examinations. The materials will be field tested in Texas. A professional development program will be prepared. Evaluation will examine both the materials themselves and their implementation by teachers and students, and will use classroom ovservation, teacher and student questionnaires, teacher interviews and analyses of student works.